Workshop on "Nanotechnology - Revolutionary Opportunities and Societal Implications." to be held January 31-February 1, 2002 in Lecce, Italy

Abstract
CTS-0203182
A. Ellis, University of Wisconsin-Madison

The proposal is for travel support for the speakers at the EC-NSF workshop on "Nanotechnology - Revolutionary Opportunities and Societal Implications" to be held in Lecce, Italy on January 31-February 1, 2002. The workshop will involve approximately 16 U.S. speakers and poster presenters and about the same number from the European Commission (EC). The workshop is a part of a series of four workshops on nanotechnology organized by NSF and EC in 2002. The objectives are to evaluate new trends in research and education, to exchange information among leading research centers in both countries, and to promote the exchange of researchers and establishment of joint projects.

Given the rapid expansion of Nanotechnology and the significant impact it has on products and services in the society, it is important to periodically examine and explore opportunities and implications on broad societal impacts.